Collaborative Project: An Information Security Track Development - University of Louisville, Kentucky State University

This project is a collaborative effort of the University of Louisville, an urban university with a liberal arts mission and the Kentucky State University, designated as a Historically Black College/University, to develop a concentration and certificate programs in information security. This project develops the curriculum content, faculty development, and infrastructure development in this area, including dedicated stand-alone Information Security labs for providing hands on experience for the students that provide exposure to dealing with network attacks. The collaboration enables the institutions to recruit both urban and rural students from a diverse student population for a rigorous academic program.